Computer Modeling of Stochastic Groundwater Flow

The efficient modeling of groundwater movement allows analysis and prediction of the response of aquifers to changes in conditions. This project will undertake the developmental work for a compact, portable and user-friendly simulation model to be used for monitoring pollutant transport. This work is based on the boundary integral equation method where both hydraulic conductivity and boundary conditions are taken to be random. This formulation will allow robust sensitivity analysis and inference about the range of variability as well as simulation of flows.